ARKnet - Phase V: A Project to Expand Arkansas' Statewide Academic/Research Network

The University of Arkansas requests support from NSF to connect eight institutions of higher education and one unique library to the Internet. These institutions include: Arkansas Valley Technical Institute, Crowley's Ridge Technical Institute, Delta Technical Institute, Foothills Technical Institute, Forest Echoes Technical Institute, Great Rivers Vocational Technical School, Ozarks Regional Library, Quapaw Technical Institute, and Rice Belt Technical Institute.